Algorithms and Architectures for Channel Estimation and Multiuser Detection in CDMA Communication Systems

ABSTRACT: NCR-9506681, William Marsh Rice University, Algorithms and Architectures for Channel Estimation and Multiuser Detection in CDMA Communication System, PI-Behnaam Aazhang and Joseph R. Cavallaro: There are three major problems in using multiuser detection for the next generation cellular CDMA networks: estimation of the signal and channel parameters, real-time hardware implementation of multiuser estimation and detection algorithms, and system adaption to changes in the network. This project addresses the development and concurrent implementation of algorithms for channel estimation and data detection in a multiuser environment. The objective is to find computationally efficient algorithms that are near-far resistant, are capable of tracking slowly varying channels, and can be extended to systems with antenna arrays. An integral part of the project is the implementation of these algorithms. The mapping of the algorithms onto parallel architectures, particularly using standard DSP processors in combination with custom VLSI co-processors will be studied. The project combines developments in multiuser communications with developments in DSP and VLSI to provide practical solutions for problems in CDMA communications. ***************************************************************************** Aubrey M. Bush
Program Director, Acting Deputy Divison Director
Division of Networking and Communications Research and Infrastructure
National Science Foundation